Analysis and Control of Flow and Flutter in Aeroengines

0072191
Birnir

In a program of analytical and computational investigations, the
investigator will develop control theory to make jet engines lighter, more
efficient and safer. Surge and stall are instabilities in the flow of air
through the engines; flutter is an oscillation of the blades compressing the
air. These instabilities decrease the efficiency of the engine and can be
dangerous. The control theory aims at controlling all of these instabilities.

If lighter, more fuel efficient and safer aircraft engines are to be made the
current technology needs to be improved. This research tries to
accomplishes this goal by first developing a mathematical model for the
jet engine, then simulating this model of the engine on a computer and
using the results to figure out how to design a much more efficient and
safer jet engine. Then this design is implemented and checked in the
laboratory. Similar technology is also used to compress rocket fuel before
combustion and an optimization of the technology as a whole may lead to
cheaper space travel.